Collaborative Research: VINES: Track1: Management and Control of Multi-Infrastructure Spectrum-Sharing Networks.

This collaborative project brings together investigators from Northwestern University and the Massachusetts Institute of Technology to develop management and control methods for next generation wireless networks that share both infrastructure and spectrum. Future wireless systems will need to support many service providers, infrastructure providers, and users over common radio access resources while still meeting demanding service requirements. The project is creating a sharing native network framework in which providers can pool spectrum bands, share base station infrastructure, and use service level agreements to specify performance targets. It is also studying how market incentives and pricing can support efficient sharing among independent providers. The technical work is organized into three thrusts. The first thrust is developing control architectures, market models, service level agreement designs, and resource pooling methods for multi-infrastructure spectrum sharing networks. The second thrust is developing centralized and decentralized resource provisioning algorithms that provide quality of service guarantees for throughput, delay, reliability, and queue stability under stochastic wireless conditions. The third thrust maps these algorithms into practical Open Radio Access Networks using non real time, near real time, and real time control applications, multi timescale radio resource scheduling, carrier aggregation, dual connectivity, and mechanisms for adapting to intermittent spectrum availability.

The project can improve the efficiency, affordability, and reliability of next generation wireless networks by enabling shared use of scarce spectrum and costly infrastructure. These advances can lower deployment costs, improve coverage in rural, indoor, and underserved environments, and support emerging applications that require predictable throughput, low delay, and high reliability. The research outcomes will be evaluated through custom simulations, standards-based network emulation, and programmable radio testbeds, helping bridge theoretical network control and deployable wireless systems. Results will be disseminated through publications, online materials, engagement with industry and government laboratories, and service to the research community. Educational impacts include new material for graduate networking courses, undergraduate research projects involving simulation and testbed evaluation, and senior capstone or honors projects focused on implementable wireless networking algorithms. These activities will train students in communication networks, optimization, game theory, and experimental wireless systems.